US-Western Europe Workshop on Stereochemical Dynamics; SantaCruz, California; November 16 - 21, 1990

This award supports a group of U.S. chemists to participate in a small international workshop on dynamical stereochemistry in molecular collision processes, to be held in Santa Cruz, California, between November 16 and 21, 1990. The meeting is co-organized by Dr. David Parker of the University of California, Santa Cruz and Dr. Steven Stolte of the Chemistry Department, the Free University of Amsterdam. The conference will bring together key researchers and several young scientists in the full range of disciplines in this rapidly expanding field on the forefront of chemical physics. They will produce a thorough assessment of the present state of knowledge and delineate the directions and level of effort needed for promising future research. Both theoretical and experimental progress will be addressed. The range and tools of dynamical stereochemists have expanded dramatically in the past few years and now include direct probes of the transition state and real-time measurements of product appearance and polarization. A major theme of the meeting will be vector properties in molecular scattering processes. The aim of this research is to understand how chemical and physical change occur via collisions; the approach is to measure correlations between the various directional properties involved. The program also includes discussion of two very new areas of stereochemical research: femtochemistry and steric models of solution dynamics. The proceedings of the conference will be published as a special issue of the Journal of Physical Chemistry.